"Mathematics Experiences through Image Processing"

Digital image processing offers several possible new approaches to the teaching of a variety of mathematical concepts at the middle-school and high-school levels. There is reason to believe that this approach will be successful in reaching some "at-risk" students that other approaches miss. Since digital images can be made to reflect almost any aspect of the real world, some students may have an easier time taking an interest in them than they might with artificial figures or images resulting from other graphics- oriented approaches. Using computer-based tools such as image processing operators, curve-fitting operators, shape analysis operators, and graphical synthesis, students may explore a world of mathematical concepts starting from the psychologically "safe" territory of their own physical and cultural environments. There is reason to hope that this approach will be particularly successful with students from diverse backgrounds, girls and members of minority groups, because the imagery used in experiments can easily be tailored to individual tastes. The work of the project consists of creating detailed designs of the learning modules, implementing them on microcomputers, and evaluating their effectiveness in a variety of ways, using trials with students at Rainier Beach High School, which is an urban public high school having an ethnically diverse student body and a Macintosh computer laboratory.